Structural and Mechanistic Studies of 10-Formyltetrahydrofolate Synthetase

Lukasz Lebioda
MCB 9873606

10-Formyltetrahydrofolate synthetase (FTHFS) catalyzes the reversible
formylation of tetrahydrofolate using the energy of ATP hydrolysis to drive
the reaction. All known FTHFSs are homologous; however, in many eukaryotes
FTHFS is a part of trifunctional C-1-tetrahydrofolate synthase while in
bacteria it is a separate enzyme. The mechanism of FTHFS has been studied
for almost three decades but in the absence of information about its
three-dimensional structure the progress has been limited. Of particular
interest is the role of monovalent cations in catalysis, the comparison of
the folate-binding site with those present in other enzymes. The enzyme of
interest is from thermophilic bacteria and the structural origins of
thermostability will be analyzed.

This study is based on previous studies with 10-Formyltetrahydrofolate
synthetase from Clostridium thermoaceticum. Earlier work determined the
cDNA and amino acid sequence, expressed the enzyme in E. coli, purified and
crystallized the recombinant native and selenomethionine forms of the
enzyme. Multi-wavelength anomalous dispersion (MAD) data were collected to
2.5 A resolution from the Se-Met crystals. Positions of anomalous
scatterers were determined using direct methods and the results used to
solve the phase problem. A model of the molecule was built and optimized
using crystallographic refinement. Further studies will be directed towards
the determination of the structures of the enzyme in the form of complexes
with the substrates/catalytic intermediates, and inhibitors. Based on
structural data, the catalytic role of side chains present in the active
site will be elucidated. The hypotheses so generated will be tested using
site-directed mutagenesis.